Internet Engineering Repository

This three year project is developing and making available on the web a collection of curricula and resources for teaching undergraduate and graduate networking engineering courses. Project personnel are establishing an advisory board, identifying existing materials and soliciting new contributions from authors, developing appropriate formats and editing the materials as required, soliciting corporate and university partners to assist in making the project self-sufficient, and expanding the existing web site and defining the feedback/review process.